Environmental Colloid Chemistry: Brownian Particles and Pollutant Behavior

9708520 O'Melia This is an award to provide Renewal Support for research originated under NSF Award No. 91-12766 that dealt with the theory, measurements and applications relating to the stability of colloids in aquatic environments. In the research being conducted under this award, the investigator plans on refining and extending the conceptual model developed in prior research to more complex aquatic systems than were considered in prior research based on interactions of single Brownian particles with stationary surfaces. In the renewal work, the PI will give special consideration to reversible aggregation and deposition processes, validate the model experimentally and apply the theoretical and experimental results to considerations of particle transport and fate in ground and surface waters. Results of this research are expected to provide insight and predictability to the processes by which small particles deposit and become part of the sediment burden of surface waters and the processes by which colloids move through groundwater aquifers. This knowledge is likely to be applied in the engineering design of processes for removal of particles from suspension in surface waters and in designing systems for decontamination of groundwater aquifers. ***